Synthetic Biology, Engineering, Evolution & Design 2016 (SEED 2016), Chicago, IL, July 18-21, 2016

1634295
Jewett, Michael

This award provides support for the 'Synthetic Biology: Engineering, Evolution and Design (SEED) Conference 2016' to be held at the Hilton in Chicago, July 18-21, 2016. SEED 2016 is the third conference in an annual series of meetings intended to bring together researchers from industry and academia in the area of Synthetic Biology.

The SEED conference will provide leadership in the development of the field of synthetic biology and will serve to broaden the participants in the field by appealing to broad sectors in industry and providing a means for young investigators and those outside of the field to participate. It will focus on designing, harnessing, and expanding the capabilities of biological systems. The multidisciplinary session topics will include (i) Self-sustaining systems and photosynthetic driven bioproduction, (ii) Biological circuits in natural and engineered systems, (iii) Bio-design automation, (iv) Biomaterials.

This award is co-funded by the Biotechnology and Biochemical Engineering Program of CBET and by the Synthetic and Systems Biology Program of MCB.